U.S.-Germany Cooperative Research: Nonclassical Features of Entangled Systems

0089784
Walmsley
This award supports Ian Walmsley and students from the University of Rochester in a collaboration with Werner Vogel of the Department of Physics at the University of Rostock, Germany. The project will focus on the nature of entangled states and their relation to the measurement of non-classicality. The two groups will join forces to produce and study the entanglement of short biphotons and multimode squeezed light pulses. They will also look at coupled anharmonic systems such as the vibrational and rotational states of molecules. The investigations will require both theoretical and experimental work, which will make extensive use of the complementary expertise available from the German and U.S. groups. Exchange of junior researchers is emphasized to add an international dimension to their training and to allow them to establish international connections early in their careers.